Catalysis, Adsorption and Charge Transfer Kinetics in Reactions at Electrodes

This grant is in the general area of analytical and surface chemistry and in the subfield of electroanalytical chemistry. Professor Anson will study the electrical properties of conducting polymers on electrode surfaces using a variety of electrochemical methods together with complementary measurements of mass and surface morphology. This research will involve several different projects all involving chemically modified electrodes. A quartz crystal microbalance will be used to quantify changes in mass during electrochemical experiments involving explusion and uptake of ions. Scanning electrochemical microscopy will be used to determine the surface features of active redox sites. This research will contribute to the development and understanding of electrocatalytic systems.